Manufacture of Fiber Preforms for Liquid Composite Molding

9415051 Tucker This Project examines the manufacture of preforms for liquid composite molding. It focuses on thermoforming methods, where an initially flat sheet is formed into a three-dimensional shape. The goals of the project are to understand the mechanics of preforming, to predict whether or not any specific part can be formed from any given random-fiber mat, to quantify the effects of preform deformation on mold filling, and to incorporate these results into computer-aided engineering software that will be useful to industry. This project addresses a critical and expensive step in the manufacture of composite materials. An improved forming theory will aid designers in recognizing difficult-to-form geometric features in their parts and correct the problem before the tooling is built. Designers will also be better able to identify features that absolutely cannot be formed from available materials, and thereby avoid development efforts that are doomed to failure. ***